CEDAR: An Analysis of the Gravity-Wave Induced Fluctuations in the Hydroxyl Airglow During ALOHA-93

The investigators propose to analyze a data set obtained in 1993 from the ALOHA portion of the ALOHA/ANLC (Airborne Noctilucent Cloud Campaign). This data was taken by the Michelson Interferometer (MI) aboard the NCAR aircraft. The goals of this analysis are: (1) to identify large-scale structures present in the OH radiance and temperature, and correlate them with the presence/absence of the Quasi-Monochromatic Events (QME) seen in the on-board airglow imager; (2) to perform a power spectral density analysis of the OH radiance and temperature in both the presence and absence of the QME seen in the on-board imager; and (3) to correlate these results with the vertical structures seen in the sodium lidar.